Studies in Experimental Particle Physics

The BABAR experiment at Stanford Linear Accelerator Center is collecting data with several hundred millions of B mesons already produced. It is one of the two dedicated "B-factories" (the other one is the BELLE experiment in KEK in Japan), which are the best-suited experiments for B-physics.

After the early goal to discover violation of matter- antimatter symmetry, the BABAR experiment is now set to search for physics beyond the Standard Model via rare decays. Here is proposed a program of B physics in the BABAR experiment that targets this topic.

The CMS experiment at LHC, now completing construction, will allow the direct exploration of new effects at the highest energy scale of accelerators. The primary focus if this group in to investigate B meson production as well as additional decay modes available at the CMS experiment. Thus the PI will exploit the existing potential of B-physics with the BABAR experiment, and build on this experience to start the physics studies on CMS.